Conference on: Chromosome Replication and Segregation in Yeast, August 5-10,1990, Saxton's River, VT

This application is for partial funding of a conference on Chromosome Replication and Segregation in Yeast to be held under the auspices of the Federation of American Societies of Experimental Biology (FASEB) from August 5-10, 1990 at the Vermont Academy, Saxton's River, Vermont. Participation in the meeting will be limited to 155 scientists who will be chosen from applicants on the basis of their expertise and interests as being the most likely to help create a stimulating and informative meeting. The topic of the meeting emphasizes research on the chromosome replication and segregation in yeast. While most participants will use baker's yeast, Saccharomyces cerevisiae, as an experimental system, scientists using other filamentous fungi will be encouraged to participate. The conference will consist of nine scientific sessions, each with approximately 9 speakers; in addition, one or two afternoons will be devoted to poster sessions and/ or informal group discussions. Approximately half of the speakers from each session will be invited in advanced; the remaining half will be chosen from the pool of applicants. Three sessions will be devoted to DNA replication (cis elements and their associated factors, enzymology, and in vivo analysis of origin usage). Four sessions will be devoted to chromosome segregation (centromeres and their associated factors, the mitotic apparatus, nuclear architecture and new mutational approaches to chromosome transmission). The last two sessions will be devoted to the analysis of the coordination of chromosome replication and segregation during the cell cycle. This meeting will fill an important niche for scientists interested in yeast chromosome replication and segregation by allowing extensive communication between laboratories at the important time this rapidly developing field.